High Performance Capacitors and Nonvolatile Memories based on Langmuir-Blodgett Films of Ferroelectric Polymers

The purpose of this work is to demonstrate and evaluate two device concepts incorporating
ferroelectric polymer Langmuir-Blodgett films: high-performance capacitors and
nonvolatile data storage elements. Both device concepts take advantage of unique
dielectric and ferroelectric properties of Langmuir-Blodgett films of polyvinylidene
fluoride and its copolymers. The high-performance capacitors benefit from the record
dielectric strength of over 3 GV/m in the highly uniform films as thin as 1 nm. The energy
storage density of multilayer capacitors made from the ferroelectric polymer LB films is
expected to reach 200 to 1000 Joules per cubic centimeter. The fast switch speed of 2
microseconds and the ability to deposit the films on a variety of substrates permits the
fabrication of inexpensive of hybrid nonvolatile data storage devices composed of a
ferroelectric polymer LB film deposited directly on an array of planar field-effect
transistor. Though each device concept may independently prove suitable for practical
application, they may prove particularly useful together in combination with conventional
integrated circuits for the production of nonvolatile random-access memories, caches, and
archival storage. This project is a natural spin-off of five years of study and
development of the only reported two-dimensional ferroelectrics, research conducted
jointly by the PI's group in collaboration with two groups at the Institute of
Crystallography in Moscow.